Operads, homotopy theory and string topology

McClure proposes to build on prior work with Jeff Smith which allows several
important operads and their actions to be investigated combinatorially
(specifically, cosimplicially). One direction, which is already partially
completed, is to relate our work to that of Chas and Sullivan. Expected
results in this direction are: the Chas-Sullivan operations are induced by a
chain-level action of the framed little 2-disks operad (this is an analogue of
Deligne's Hochschild cohomology conjecture) and the Eilenberg-Moore spectral
sequence converging to the homology of the free loop space of a compact
oriented PL manifold is a spectral sequence of Batalin-Vilkovisky algebras.
Another problem which may be accessible by these methods is Kontsevich's
``higher Deligne conjecture.'' A longer-term goal is to combine Mandell's
theorem that E-infinity chain algebras model topological spaces with our
combinatorial E-infinity chain operads to obtain explicit results.

An interesting development in theoretical physics during the last twenty years
has been the increasing significance of homotopy theory. It seems to be
useful to create chain-complex models for quantum field theories, both as a
preliminary step toward the full development of such theories and as a
permanent computational device. Operads have played an important role as an
organizational tool for this kind of work. Recently Chas and Sullivan have
shown that the unbased loop space of any compact oriented PL manifold is a
quantum field theory at the level of homology; this raises the question of
whether their work can be lifted to the chain-complex level and whether it is
related to an operad action (specifically, to an action of the framed little
disks operad). Techniques developed by McClure and Smith are well-adapted to
this question, and this is one of the directions that McClure intends to
pursue.